Solution of Large Markov Models for Computer Performance and Dependability Analysis

The ability to evaluate options early in the design phase is essential for today's complex computer-communication systems. Models are required to be able to specify and analyze designs prior to expending large amounts of capital on actual construction of the system. Performance and reliability are two of the major criteria for system design evaluation, and the main approaches to evaluation are simulation and stochastic modeling. The most widely used class of stochastic models is Markov chains. Markov models have their limitations, but where applicable they are generally less costly than simulation and also have a theoretical foundation that permits one to consider formal error bounds, sensitivity analysis, etc. The main limitation of Markov models is the amount of computer memory and processor time required for representing and solving the models. The amount of required resources grows very rapidly with the complexity of the model and unfortunately, models of real systems are often quite complex. The thrust of this research is to develop analysis techniques which greatly extend the range of models that can be analyzed with Markov chain numerical methods. The only way to deal with the state space explosion problem is to exploit properties of the particular class of problems of interest. Although it is often effective to identify and take advantage of special problem structures, the success of this research will also be judged by the generality of the results, i.e., the ability to handle as wide a class of problems as possible. The approach taken here is to examine several classes of important problems in computer system performance and reliability modeling and show that certain properties of each of these problem classes suggest methods of analysis that will permit computation of tight bounds on the solution of models that would be impossible to solve via standard numerical solution methods. The results of this research will provide both specific results on a set of applications (dependability analysis, load balancing, parallel processing and protocol analysis) that are of great interest by themselves but even more importantly will contribute to the body of formal techniques that will provide the basis for advanced design analysis tools.